The Geometry of Numbers and Discrete Production Sets

A major assumption of classical economic theory is that production is governed by constant returns to scale. This assumption forces us to ignore one of the central features of economic life in the last two centuries: the large industrial firm whose size is based on the economic advantages of large-scale production. Economists have long held the opinion that efficiencies of large- scale production were caused by indivisibilities, i.e., large, lumpy aggregates of capital -- assembly lines, railroad and telephone networks, oil pipelines, bridges -- whose economic advantages could not be realized at low levels of production. Indivisibilities can be introduced into a linear programming problem by requiring that some or all of the variables of choice be restricted to integer values; the resulting programming problems are extraordinarily difficult to solve. One of the major projects of the present proposal is the development of a new algorithm for the solution of the general integer programming problem, which seems, from preliminary experience, to perform exceptionally well on classes of problems which cannot be solved by earlier methods. The investigator will also attempt to provide an economic interpretation of this algorithm in terms of the internal organization of the large-scale firm.